Collaborative Research: Long Term Sublimation/Preservation of Two Separate, Buried Glacier Ice Masses, Ong Valley, Southern Transantarctic Mountains

Putkonen/1445205

This award supports the study of a large body of ice that is buried beneath approximately a meter of debris in the Ong Valley of the Transantarctic Mountains of East Antarctica. Preliminary analyses of this material suggest that it could be over a million years old. Most glacial ice contains tiny air bubbles that have trapped the atmospheric gases and other atmospherically transported materials existing at the time that the ice was deposited such as plant pollen, microbes and mineral dust. Samples will be collected from this buried ice mass, down to a depth of 10 meters, and cosmogenic nuclide concentrations both in the overlying debris and in the till contained in the ice will be measured. This site could contain some of the oldest ice on Earth and studies of the material contained within it may help researchers to better understand the processes involved in its survival for such long periods of time. This work will also help inform scientists about the processes involved in the development of landforms here on earth as well as those on Mars where similar dirt covered glaciers are found today.

Samples of the buried ice will be collected in Ong Valley and analyzed to determine the cosmogenic nuclide concentrations in both the overlying debris and in the mineral matter suspended in the ice. The combined analysis of the target cosmogenic nuclides (Beryllium-10, Aluminum-26, and Neon-21) will allow the age of the ice to be uniquely determined and will enable determination of the rate that the ice is sublimating. The intellectual merit of this research is to unequivocally determine the age of the ice and the sublimation rate of the ice in Ong Valley, Antarctica and to better understand if this an uniquely Antarctic process or whether it could exist elsewhere on earth or on other planets. The work may also lead to the recognition of the oldest buried ice ever found on Earth and would provide a source from which direct information about the atmospheric chemistry, ancient life forms, and geology of that time could be measured. The broader impacts of this work are that it will be relevant to researchers in a number of different fields including glaciology, paleoclimatology, planetary geology, and biology. Several students will also participate in the project, conducting Antarctic field work, making measurements in the lab, attending meetings, participating in outreach activities, and producing videos. A graduate student will also write a thesis on this research. The results will be published in scientific journals and presented at conferences. The project requires field work in Antarctica.